Replacement of the Chemistry Computer System

This award from the Academic Research Infrastructure Program will help the Department of Chemistry at the University of Houston acquire a new departmental computer system. The areas of chemical research that the acquisition will impact are the following: 1. Theoretical/computational approach to problems in peptide mimetic design and antiviral nucleic acid oligomers. 2. Development and application of powerful new methods for time-evolving wavepackets describing multiparticle systems. 3. The refinement of crystallographically determined structures using XPLOR and studies of protein dynamics on aspartate transcarbamylase. 4. Reaction dynamics in organometallic, solid-state and biological areas of chemistry. 5. Exploration of several problems in the areas of molecular recognition, binding and reactivity. %%% The use of mini-supercomputers provides theoreticians with computing performance equal to that of large mainframe computers. Theoretical chemistry computations give a quantitative description of the energetics and rates of elementary chemical reactions and also provide a qualitative understanding of the fundamental factors governing chemical changes. Most of these studies would not have been possible before the acquisition of the mini-supercomputer because the cost of mainframe computers or the computer time required would have been prohibitive.